International Development Ethics Association Third International Conference; Tegucigalpa, Honduras

This project will provide support for delegates travel to attend the Third International Conference on Ethics and Development to be held in Tegucigalpa, Honduras, on June 21-27, 1992. Colorado State University and the International Development Ethics Association (IDEA) are the North American sponsors of the conference. The theme is "The Ethics of Ecodevelopment: Culture, the Environment and Dependency." Conference participants are expected to number 200, including 50 Hondurans. IDEA is an interdisciplinary, cross-cultural group of 300 philosophers, development theorists, and practitioners who apply ethical reflection to national and international development goals and strategies and to the relations between the "North" and the "South." Among the Conference's distinctive aims are to promote a fruitful convergence of international development ethics and environmental ethics; to contribute to the formation of a new paradigm of sustainable development; and to generate a greater understanding of the actual and ideal relationships between biodiversity, cultural diversity, and sustainable development. The immediate beneficiaries of these funds will be participants from the Third World who otherwise would not be able to attend the conference. Other participants will benefit from their exchange with these speakers about their understanding of the problems of and solutions to species impoverishment, environmental degradation, and unjust development in both South and North. Besides articles, publications, and proceedings, results will include media interviews, newsletter and newspaper articles, and further development of the international network of theorists, analysts, decision makers, academic institutions and stakeholder groups concerned about these issues.